REU Site: Undergraduate Symbolic Computations in Engineering and Science (USCES)

9531571 Vakakis, Alexander F Sipcic, Slobodan R University of Illinois Urbana-Champaign REU: Undergraduate Symbolic Computations in Engineering and Science (USCES) This Research Experiences for Undergraduates project will support ten students per year in programs carried out during the summer, for three years. The project will promote the emerging field of symbolic computational science as an approach to computational modeling and scientific computing with problems drawn primarily from mechanical and industrial engineering. Specific goals of the project are (a) to introduce the students to modern computational and symbolic methodologies for solving challenging problems, (b) to increase understanding of the qualitative and quantitative nature of these problems, (c) to develop the students' ability to derive and interpret mathematical models, and (d) to provide an integrated educational experience to a selected group of undergraduate students with special emphasis on underrepresented groups. Members of the research team are from `oth the University of Illinois and from Wolfram Research and use of the symbolic manipulation package Mathematica will be a focus of the effort. ***